Infinite Antichains of Graphs

9400946 Ding This award funds the research of Professor Guoli Ding in graph theory. Prof. Ding works on the Graph Minors Project. He uses the techniques of this project to study infinite antichains of graphs relative to graph containment, topological minors, and induced subgraphs. The research is in the general area of combinatorics, in particular graph theory. Combinatorics attempts to find efficient methods to study how discrete collections can be organized. Graphs are arrangements of points connected by lines. The behavior of discrete collections like graphs is extremely important in modeling systems and plays a role in modern computing, communications and operations. For example, the design of large networks, as in telephone systems, and the design of algorithms in computer science all use graphs in their development, and make use of combinatorial research.